New Astronomy Exercises from Project CLEA's Virtual Educational Observatory (VIREO)

Physics (13)

Since its inception, Project CLEA's goal is to create a body of astronomy laboratory exercises and a cadre of faculty that will make it possible for college students to experience modern techniques in observational astronomy. To increase accessibility, the Project CLEA staff are moving a number of CLEA's more popular laboratories to a web-based platform.